Towards a High Resolution, Three-component Velocity Field for the Central Andes

Towards a high resolution, three-component velocity field for the central Andes

This study will use space geodetic measurements (GPS and InSAR) to
create a high spatial resolution, three-component map of crustal
velocity in the central Andes during the past decade. The primary
goal is to image possible along-strike variations in the inter-seismic
deformation field. While the inter-seismic deformation field is
interesting in its own right, and can be used to determine which parts
of the subduction interface are locked (and might rupture in future
earthquakes), the objective is to model this deformation so that it
can be removed. This study seeks to isolate subtle low-amplitude
deformation, including: 1) Bulk post-seismic relaxation following
recent subduction zone earthquakes. 2) Aseismic motion on shallow
crustal faults related to long-term mountain-building. 3) Magma
movements in deep sub-crustal reservoirs and at low rates in shallow
chambers. This study will use methods similar to those of previous
studies (e.g., Peltzer et al., 2001, Wright et al., 2001), but will
increase the amount of data and spatial coverage by 1-2 orders of
magnitude, from the 10's of scenes of InSAR data used in previous
studies to nearly 1000 scenes.

This study will help to better characterize hazards from earthquakes
in two different environments -- subduction zones and within the
continents. This project will also extend our previous surveys of
hundreds of volcanoes for active deformation that could indicate
magmatic movements and the need for further assessment of eruptive
hazard. The software that will be developed in this study will become
publicly available. This study will involve the training of graduate
and undergraduate students, and will support an early career
scientist.